Circadian Regulation and Physiological Role of the CAT-3 Catalase in Maize Metabolism

Even though all aerobic organisms require molecular oxygen for survival, the release of activated oxygen species resulting both from normal metabolism and environmental pollution can cause serious damage to the cell. Enzymes such as the catalases, protect plants from damage and the resulting reduction metabolic efficiency. Since metabolic efficiency, particularly in leaves, is a primary determinant of plant productivity, these enzymes are of significant agrononic as well as scientific importance. The ultimate objective of this research is to understand the roles of the various catalases in both normal and stress-related metabolism. CAT3 is the most abundantly transcribed catalase gene in maize leaves, and the unusual timing of its expression implies an important, specific metabolic function early at night. The goal of this project is to clarify the metabolic role of this catalase, and identify DNA sequences responsible for its novel light regulation. Ultimately this research will allow the manipulation of agronomically important plants to increase their resistance to oxidative stress.